Differential Absorption Lidar (DIAL) Using a Broadly TunableCr:LiSAF Laser

9361077 Achaerkar There are many applications for a tunable coherent 390 nm to 3.5 um source but there are no tunable laser sources and very few discrete laser lines in this region. By using a titanium sapphire laser and frequency doubling there is limited tunability but this approach suffers for poor conversion efficiency, large size and weight. In this Phase I study, Schwartz Electro- Optics, Inc. (SEO) proposes a Cr:LiSAF laser operating at 0.78-1.0 um as a pump laser for an Optical Parametric Oscillator (OPO) and a Second Harmonic Generator (SHG) for the generation of 0.39-3.5 um tunable source. SEO manufactures a high power flashlamp pumped Q-switched Cr:LiSAF laser (model Laser 1-2-3). For this study this laser will be used at no cost to the program. The concept of pumping Cr:LiSAF with a laser diode to reduce laser size and weight and improve reliability will be evaluated. In Phase II program, the diode pumped, all solid state, broadly tunable laser source will be used in the desiqn, fabrication, and test of a DIAL system for remote sensing. *** .